Greens Functions and the Nuclear Many-Body Problem

The properties of nuclei with extreme neutron to proton ratios are becoming available for experimental scrutiny at facilities like the Facility for Rare Isotope Beams (FRIB) starting shortly on the campus of Michigan State University. Most of the experimental probes to study these exotic nuclei involve particles that interact strongly themselves making it difficult to extract the properties of individual protons or neutrons in these exotic systems. The project aims at overcoming this difficulty by providing a simultaneous description of positive energy nucleons, the domain of elastic scattering, and bound nucleons, the domain of nuclear structure, using the framework of the propagator method of quantum mechanics. This approach will provide critical insights into the properties of very neutron-rich nuclei, and is therefore relevant for the physics of neutron stars by clarifying where neutrons are found with respect to the distribution of protons and how neutrons are captured by neutron-rich nuclei. The PI will mentor graduate students in this research and collaborate with experimental colleagues who will perform related experiments.

The propagator method will be utilized with non-local potentials constrained by experimental data that allow for the accurate description of ground-state properties of nuclei by the method of dispersion relations. Simultaneously, this implementation will be able to describe or predict all relevant experimental data in the continuum including elastic scattering cross sections. It will therefore be possible to study various nuclear reactions using the ingredients of this method in analogy to the successful analysis of electron-induced proton knockout reactions thereby clarifying the properties of protons and neutrons in exotic nuclei as well as suggesting relevant new experiments. In particular reactions involving deuterons will be studied employing potentials that are nonlocal and obey dispersion relations. Continued interest in the prediction of the neutron distribution for nuclei with excess neutrons will be maintained. An extension of the method will be developed to allow a simultaneous description of response functions. The propagator method will also be employed to calculate the properties of nuclei by starting from the underlying interactions between nucleons as constrained by the symmetries of the fundamental theory of quarks and gluons, Quantum Chromo Dynamics and the available data for the properties of two nucleons. Such calculations will be applied with a new strategy that allows the ab initio calculation of scattering properties of heavier nuclei that have not been studied in this way to date.